Porous-Silicon-Layer Adsorption Vapor Sensor

ABSTRACT The principal investigator proposes to study the use of porous silicon layers for improving the performance of vapor sensors. Silicon layers have demonstrated capacitance sensitivity to the amount of vapor absorbed and their use will permit the development of miniaturized sensors which can operate at high temperatures. By optimizing the pore structure, these sensors will have improved sensitivity and with the inclusion of thermoelectric cooling/heating can sense a large range of vapors. Miniaturization will allow for local control of processes and temperatures.